Sino-Tibetan Etymological Dictionary and Thesaurus

ABSTRACT This project, begun in 1987, is producing a multi-volume Etymological Dictionary and Thesaurus of Proto-Sino-Tibetan (PST), the ancestor language, spoken perhaps 6000 years ago, from which Chinese and its hundreds of relatives in the Tibeto-Burman (TB) family descend. The organization of STEDT is by semantic fields, so as ultimately to constitute a thesaurus of the proto-lexicon. The Sino-Tibetan (ST)languages (typically monosyllabic and tonal) are of unusual cultural importance and theoretical interest. Lexical data, of uneven quality, is now available for hundreds of TB languages and dialects. This project has already created a vast quality-controlled database of historically significant lexical material, incorporating some 200 published and unpublished sources (some solicited by questionnaire), now totalling over 130,000 records and occupying over 60 megabytes of disk space. Priority has been given to the profusion of new information furnished by Chinese and Indian linguists. To this Lexical Database is joined an Etymological Database, where all etymologies previously proposed for any taxonomic level of ST or its subgroups are collatable for analysis and evaluation. Yet most of the reconstructed roots in this database are quite new, and have only been attainable because of the massive amount of data brought together by this project. The first semantic area to be covered now comprises close to 1000 roots and root variants, to be included in the first volume of STEDT, Bodypart Nomenclature, which will come to roughly one thousand pages. Production of subsequent volumes will proceed at an accelerated rate during the new grant period. The STEDT will constitute the most comprehensive and accurate documentation of the Sino-Tibetan language family ever produced, and will be an important resource for historical linguistic research and theories of language change in general.